Measures, Dimension and Dynamics

DMS 0400481

D Mauldin - M Urbanski

Measures, Dimension and Dynamics

University of N Texas

Abstract

The principal investigators propose to further advance the theory of
conformal systems as well as its applications and connections to areas of mathematics such as the number theory, geometric measure theory,
probability theory, and complex analysis. Of special interest is the
development of analytical tools required within the context of conformal
graph-directed Markov systems, infinite iterated function systems,
iterations of transcendental entire and meromorphic functions and
holomorphic endomorphisms. The proposed work involves graph-directed
Markov systems with infinitely many vertices and edges, interpretations
between counting functions, approximations and asymptotic limits, the
properties of various dimensions and measures within the context of graph
directed Markov systems. Applications involve Gauss' circle problem and
Steinhaus' lattice problem, Diophantine approximation and self-conformal
measures, return times, Kolmogorov's superposition theorem, the geometry
and dynamics of the Fatou function, Gibbs measures for elliptic functions,
critically pseudo non-recurrent elliptic functions, multifractal analysis
of hyperbolic exponential functions, and multifractal analysis of Axiom A
holomorphic endomorphisms.